A Measurement Study of Control Theory Explanations of Deviant and Delinquent Behavior

9412316 HIRSCHI This project uses a survey of adolescents to develop better measures of self-control and to test control theories of delinquency and crime. These theories, which suggest that young people commit delinquent acts because they do not consider the long term or broader consequences of their acts, have received significant scientific support. They argue that child rearing practices in the home and the school produce people with varying degrees of concern for family, school, and peers, which translates into a differential likelihood of committing delinquent or criminal acts. Major scientific issues remain, however, which center on the generalizability of such patterns, on the circularity or tautological nature of individual-level control theories, on the relation between social and individual sources of control, and on the relation between control theory and other forms of deterrence (such as activities of the criminal justice system). The research will (1) test the generalizability of earlier work to samples differing in ethnicity, gender, urban location, and historical period; (2) develop and validate measures of self- control; (3) analyze the relationship between social-control and self-control; and (4) explore the relationship between these forms of control and other types of deterrence. The study will produce an empirically validated instrument for measuring self-control and a large data set of high quality that will be of interest to many researchers. ***